The 8th International Symposium on Ice

Sea ice is assuming an increasingly important role as an environmental factor in the design of offshore structures in northern waters and in naval operations. The symposium therefore is particularly timely with respect to these issues. Other, more mature elements bearing on river navigation and structures will be updated.